High Temperature Superconducting DC Networks

The major thrust of this research project is a detailed investigation of a low voltage direct current meshed transmission system. The system in this study shall consist of a meshed superconducting system with isolated generation and many small inverter taps to move power from generators to ac loads. Several key issues are central to this investigation: understanding the behavior of a meshed superconducting network in conjunction with a directly-connected form of generation, the voltage levels, the classes of inverters and the methods of control of the resulting ac/dc system. This research is being jointly funded by the Electric Power Research Institute (EPRI).